Symposium on "Interfacial Structure, Properties and Design",Materials Research Society Meeting, April 4-8, 1988, Reno, Nevada

This support is for a conference titled "Interfacial Structure, Properties and Design." The purpose of the symposium is to provide a forum for discussion of structure-property-composition relationships for grain boundaries and two phase interfaces. Researchers in the behavior of interfaces in metals, ceramics and semiconductors will interact with counterparts in the development and manufacture of these materials. Increased understanding of localized deformation and fracture at interfaces and new insights into the role of grain boundaries in ceramics should result.